MRI: Acquisition of Scanning Probe Microscope (SPM)

This award from the Major Research Instrumentation program will allow the University of Arkansas to acquire an atomic probe microscope (AFM). The instrument will enhance research capability at the institution. It will be used in research (1)on charging effects on surfaces of individual powder particles and nanoaerosols, (2) in biological specimen analysis, and (3) in surface characterization of thin films. The management plan will allow efficient use of the instrument by faculty and students from several departments at the University of Arkansas. This is an important addition to the infrastructure at the institution.

This award from the Major Research Instrumentation program and will allow the University of Arkansas to acquire a atomic probe microscope (AFM). The instrument will enhance research capability at the institution. It will beused in research (1)on charging effects on surfaces of individual powder particles and nanoaerosols, (2) in biological specimen analysis, and (3) in surface characterization of thin films. The management plan will allow efficient use of the instrument by faculty and students from several departments at the University of Arkansas. This is an important addition to the infrastructure at the institution.